MOSAIC: Meeting Our Scientific And Interdisciplinary Challenges

The MOSAIC (Meeting Our Scientific and Interdisciplinary Challenges) project is offering a rich diversity of initiatives and interdisciplinary learning opportunities for cohorts of academically-talented, financially-needy students majoring in Biology, Chemistry, Computer Information Systems, Computer Science or Mathematics. The project is engaging scholarship recipients in interdisciplinary experiences to develop an understanding that they are part of a larger technological mosaic; and it reaches out to pre-college students to increase enrollment and retention, particularly of under-represented minorities, women, and students with disabilities, to degree achievement. The intellectual merit of MOSAIC is based on a strong academic program and builds on the successful organization and outcomes of an earlier grant under the Computer Science, Engineering, and Mathematics Scholarships program. Active student recruitment is leading to broader impacts including: a middle school outreach program aimed at reversing the tendency of underrepresented groups to turn away from mathematics and the sciences; encouraging more students to choose teaching and research in the S-STEM disciplines; disseminating interdisciplinary course materials developed for these students; seeking corporate funding to make the MOSAIC project self-sustaining.